Tracing the Origins of the Deuterostome and Protostome Animals

9527973 LAKE By far the greatest numbers of species in the world's biodiversity are members of very varied groups or lineages known collectively as "invertebrate animals." To date, our knowledge of the relationships among invertebrate phyla is based primarily on morphological features and the resolution of relationships on this basis still leaves much to be desired. This award will provide funds for DNA sequencing efforts for 35 invertebrate taxa and that information will be used to address morphological, paleontological, developmental, and biochemical changes or events that occurred during the diversification of invertebrates. Special attention will be paid to the origins of deuterostome and protostome animals and the origins of the arthropods and their hypothesized close relatives. DNA sequences will be obtained for 18S rRNA for all taxa and for a nuclear elongation factor gene for some of the taxa critical to understanding older or deeper phylogenetic relationships. This award will contribute to our currently very rudimentary understanding of an important and relatively neglected aspect of biodiversity. Knowledge of relationships among invertebrate taxa has potential applied value as many invertebrate groups include species that are of economic and medical importance. The phenomenon of bioprospecting has been revealing important natural products from invertebrates that show pharmaceutical promise from antibiotics to anesthetics.